Aerodynamic Focusing of Neutral Particles

This research will focus on uncharged particles by means of their aerodynamic interaction with a moving suspending gas in flow through a subsonic nozzle. Some analytical progress has been made and experiments are proposed to measure the size of the focal region in order to assess the validity of the theory. If successful, the process will permit writing submicron features directly on electronic circuits. Also, the ability to concentrate particles of a given size by over four orders of magnitude could lead to a new generation of aerosol analytical instruments.